Undergraduate Research in Biodiversity and Ecological Processes in Fluctuating Environments

9912278
Honeycutt

The Texas A&M University campuses at College Station (TAMU-CS) and Corpus Christi (TAMU-CC) are establishing a joint 10-week summer REU Site in biodiversity and ecological processes.